Capitol Area Theory Seminar: University of Maryland, College Park, Fall 1991 - Spring 1994

The goal of the Capital Area Theory Seminar is to stimulate research activity in theoretical computer science. The plan is to have a talk every other week at the University of Maryland, College Park, from fall of l991 to spring of 1994. The requested funds, with matching funds from University of Maryland Institute for Advanced Computer Studies, will be used to invite ten outside speakers per year.